AMP: University of Maryland System Alliance for Minority Participation

9550593 Hrabowski The proposed University of Maryland System (UMS) Alliance for Minority Participation (AMP) is a comprehensive program that is designed to extend and increase the impact of current initiatives to increase substantially the quantity and quality of minority students receiving baccalaureate degrees in science, engineering, and mathematics (SEM). The following UMS institutions will participate as full partners in the proposed AMP: 1) the University of Maryland Baltimore County (UMBC); 2) the University of Maryland College Park (UMCP); and 3) the University of Maryland Eastern Shore (UMES), a historically black institution. Additional UMS institutions have expressed and interest in participating in the proposed UMS AMP. Discussions regarding additional UMS partners for years two through five are underway. Dr. Freeman A. Hrabowski, III, President of UMBC, has received national recognition for his leadership in developing innovative programs to expand educational opportunities for minority SEM students, and he will be the principal investigator for the proposed UMS AMP. Dr. Hrabowski received the National Science Foundation's 1994 Educator Award for his outstanding commitment and dedication in the education of minorities in the fields of science and mathematics. Also participating in the AMP will be the following community colleges located in close proximity of the participating UMS institutions and that serve as the primary feeders of minority SEM transfer students: 1) Anne Arundel Community College; 2) Baltimore City Community College; 3) Catonsville Community College; 4) Chesapeake Community College; 5) Howard Community College; 6) Montgomery Community College; 7) Prince Georges Community College; and 8) Wor Wic Community College. In support of NSF's goals, the primary goals of the proposed UMS AMP include the following: 1. To produce approximately 800 minority SEM baccalaureate recipients each year by the end of the 1999-2000 a cademic year. 2. To enroll at least 300 minority SEM graduate students per year beginning in the fall of 1997. The secondary goals of the proposed UMS AMP is to increase the number of minority students entering SEM careers, especially faculty positions. The proposed AMP's design includes the following characteristics: Strong commitment by institutional leaders to the program's success; Removal of financial barriers for minority students; A Summer Bridge Component; An Academic Year Component; Focus on improving knowledge and skills; Focus on motivation and support; Focus on monitoring and advising; Focus on academic and social interaction; Focus on "filter" SEM course curricula revision; and Involvement of feeder community colleges.